Acquisition of a Carbohydrate Analysis Instrument

The carbohydrate analysis instrument requested in this application will provide carbohydrate structural information on all types of biological glycoconjugates including glycoproteins, proteoglycans, lipopolysaccharides, and glycolipids. Specific projects will involve analysis of the carbohydrate portion of: purple iron-containing acid phosphatases, extracellular matrix proteoglycans, green algae flagellar membrane glycoproteins, reproductive tract glycoproteins, Entamoeba histolytica adherence lectin, bacterial lipopolysaccarides, membrane protein glycosyl phosphatidyl inositol linker regions, and glycosphingolipids. The instrument combines high performance anion exchange (HPAE) chromatography of saccharides at high pH with pulsed amperometric detection (PAD) to produce rapid and sensitive quantitation of underivatized sugars. Sugar composition, oligosaccharide mapping, and analysis of exo- and endo- glycosidase digests will be performed using this unit. Sugars can be detected as free monosaccharides, free oligosaccharides, or glycopeptides, even in complex mixtures such as enzyme digests. This instrument is faster and simpler to use than alternative methods partly because HPAE-PAD can provide sensitive detection of sugars without derivatization. This unit will form the cornerstone of a central Carbohydrate Analysis Facility which will fill the void in glycoconjugate analysis that presently exists at this institution.